Workshop on Mid-Scale Instrument Development in the Chemical Sciences

The Division of Chemistry supports a workshop entitled "Workshop on Chemical Sciences Needs for Mid-Scale Instrument Development" organized by Professor Marcos Dantus of Michigan State University and Paul Bohn of the University of Notre Dame. This workshop brings together a diverse group of 35 participants from a broad range of institutions and geographic areas to discuss opportunities for instrument usage in the "mid-scale" range. These discussions focus on instrument development activities that meet the needs of the chemistry community.

Workshop addresses the following objectives: define national needs in the chemical sciences for mid-scale instrument development, organize needs assessment around chemical grand challenge problems, and develop a report specifying prioritized objectives in chemistry. The broader impacts are addressed by dissemination of the findings and recommendations which start a broader conversation among key stakeholders in the US chemical sciences community, including instrument developers, facility managers, and users, as well as federal agencies supporting chemical sciences.